Simulation-Based e-Learning Tools for Science, Engineering and Technology Education (Project SimBeLT)

Integrated e-learning modules for two-year technical and engineering curricula are researched, developed, tested, and disseminated. The modules are created so that they can also be used in technical programs in secondary schools and four year colleges. Virtual labs are designed to enhance the understanding of technical concepts and master selected performance skills in areas such as steam powered plant equipment, diesel engines, pumps, and valves. This development extends the work of a previously funded project and is built upon Active Learning Suite which has simulations, interactive lessons, a scriptable and animated instructor's assistant, assessment and ancillary tools, and more.